Interfacing Workshops for IBM-Compatible PCs in the College Physics Laboratory

9354021 Moloney A one week workshop is being offered at the Rose-Hulman Institute of Technology in the summer of 1994 to disseminate knowledge and expertise developed in the introductory physics laboratory at Rose-Hulman during a recent NSF grant.The workshop involves eight to ten computer-interfaced introductory physics experiments, software demonstrations, and discussions of interfacing hardware. In the evenings each participant builds a versatile PC interface box with A/D converter, instrumentation amplifier, strain gauge, and magnetic field detector. Comprehensive software packages have been developed at Rose-Hulman for all interface hardware. Participants get an overview of these packages, and a look at recently developed classroom and demonstration software. All of the source code for this software is provided to the participants.A $500 commitment is asked of each participant's institution for the purchase of physics laboratory interface equipment. One potential gain is the 'recycling' of older PCs to the physics laboratory where even 8088 machines can still be useful. ***